Collaborative Research: Why are earthquake foreshocks rare in nature?

Unfolding the details of how earthquakes get started can potentially be characterized by using foreshocks, which are small earthquakes that occur before larger earthquakes. However, not all earthquakes have foreshocks, which makes it challenging to use them to provide insights into future earthquakes. In contrast, foreshocks are routinely observed in laboratory experiments and have even been used to predict the timing of lab-quakes. Why foreshocks are more common in some settings, such as the laboratory, remains unclear, yet understanding the factors that cause these differences is key for evaluating whether foreshocks can improve earthquake forecasting. This project will address this problem by studying foreshocks using meter-scale faults. Research results from this work will be used to develop an open-access web application to communicate scientific results to the public and scientific community and will support and training for student researchers. This work advances the national interest by contributing to seismic hazard assessments and improving short-term earthquake forecasting.

The proposed work will quantify the coupling between earthquake nucleation, geometrical heterogeneity, and foreshock occurrence. The project will test whether the spatiotemporal evolution of foreshocks is controlled by the expansion of the nucleation zone, and if their frequency and magnitude statistics are modulated by the size of this zone. A second core objective of the proposed work is to test how geometric heterogeneity affects the relationship between foreshocks and earthquake nucleation processes. The project will conduct meter-scale experiments using arrays of strain gauges and fault slip sensors to detect and measure the expansion of the nucleation zone and couple its evolution to spatiotemporal changes in foreshocks. The project will implement state-of-the-art event detection, phase picking, and location algorithms to track foreshocks throughout the seismic cycle. The work will advance our understanding of the physical processes that govern earthquake nucleation and will quantify whether the early stages of an earthquake encode a seismic signature that is indicative of catastrophic failure. By understanding the physics of foreshock occurrence, this work will